Equipment for Research on the Neural Localization of Androgen-Induced Proteins

This action is to support the acquisition of a laser densitometer for the laboratory of Dr. Marilyn Mcginnis. This piece of sophisticated instrumentation will be used in various experiments which identify gene products resulting from hormone action in brain. Androgens and other steroid hormones are thought to exert their effects via genomic activations and synthesis of new proteins. Although proteins induced by androgens have been reported for peripheral tissues, proteins induced by androgen action in brain have not been identified. Moreover, genomic effects of androgen action appear to be differentially localized for copulatory behavior and gonadotropin regulation. Thus, local differences in binding of testosterone and/or its metabolites, or in protein synthesis could account for the differential effects of testosterone in the neural regulation of copulatory behavior and gonadotropin secretion. The new technological addition to this laboratory will address the question of neural localization of androgen action and will identify a specific population of proteins induced by androgen action in neural tissue.